CISE Research Instrumentation

This award is for the purchase of equipment and accessories for testing VLSI analog and digital integrated circuits. The research projects include design of novel, regenerative comparators, on-chip voltage generators, low- voltage, low-power OP amp for switch capacitor filters, and low power mixed-signal integrated circuits for biomedical applications. The equipment and accessories requested in this proposal will be used by the principal investigators and their students to test VLSI analog and digital integrated circuits for a variety of applications ranging from signal and image processing, to biomedical, space and mobile radio. Their specific research topics are divided into the areas of digital signal processing integrated circuits, analog and mixed signal integrated circuits, and analog integrated circuit synthesis.